The Effects of Task Cues and Dominance Cues on Interactions in Groups

This research examines the contributions of task cues and dominance cues to the attainment of status in groups. Results of the Phase I Small Business Innovation Research (SBIR) study indicate that females may gain influence in mixed-sex task groups by enacting high task behaviors, but that dominance behavior is an ineffective and poorly received strategy. However, although research indicates a strong negative group reaction to dominance attempts, it is not understood why this occurs. Furthermore, given that there are numerous instances in the applied work world in which females as well as males must direct others through implied threat, it is important to examine conditions under which dominance behaviors may be exhibited without negative sanction. The overall goals of the Phase II SBIR research are: (1) to understand the basis of the normative reactions to dominance attempts, and (2) to examine strategies to overcome these effects, especially attempts by females and other low status individuals to to direct others in task group environments.